Homogenization-Based Constitutive Models for Magnetorheological Elastomers at Finite Strain

Ponte Castaneda
0708271

Magnetorheological elastomers (MREs) are multi-phase,
multi-functional material systems consisting of magnetically
"hard" or "soft" particles embedded in an elastomeric matrix
phase. Because of the magnetic interactions between the
particles, these materials are magnetostrictive and their
mechanical response can be modified smoothly and reversibly in
real time. Conversely, the presence of strain in these materials
can be detected by induced changes in the overall magnetization.
Although "macroscopic" (continuum mechanics) approaches for MREs
have been in existence since the 1950s, more "microscopic"
theories with truly predictive capabilities are much more recent
and so far have been restricted to the linear (infinitesimal
strain) regime. The investigator develops nonlinear
homogenization techniques and applies them to generate
constitutive models for magnetorheological elastomers that are
valid in the finite-strain regime. This builds on earlier work by
the investigator for reinforced elastomers and uses extensions of
variational "linear comparison" homogenization techniques that
have been developed previously. At the theoretical level, the
models account for: (i) the strongly nonlinear response of the
constituents, including nonlinear ferrolectric behavior for the
particles, as well as nonlinear mechanical response for the
elastomeric matrix, (ii) microstructural information, such as
particle shape and orientation, as well as their spatial and
orientational distribution, (iii) coupled magnetoelastic
constitutive behavior, and (iv) finite deformations. At the
applications level, the methodology is used to optimally select
the constituent properties (e.g., magnetically hard vs. soft
particles, magnetically isotropic vs. anisotropic particles) and
the microstructural variables (e.g., particle shape and
concentration, aligned distribution of orientations vs. random
orientations, etc.) to enhance the magnetostrictive and sensing
capabilities of these materials.

Magnetorheological elastomers (MREs) are composite materials
with "smart" or "intelligent" properties. As a consequence of
these special properties, MREs hold great promise for use as
sensors and actuators in many industrial applications, including
the automotive, electronics, and robotic industries. In addition,
they are lightweight, inexpensive and easily processed into a
myriad of shapes. However, in order to achieve their full
potential, a better mathematical understanding is necessary of
their complex -- highly coupled and nonlinear -- macroscopic
behavior, especially in the large-deformation regime. To aid in
this process, the investigator develops a homogenization-based
approach to accurately model the macroscopic behavior of MREs,
incorporating the dependence on the magnetic properties of the
particles, their initial distribution and orientation
(microstructure), as well as the evolution of this microstructure
under large deformation. Finally, because of their actuation
properties MREs provide an artificial analogue of human muscle,
and the project has implications for other types of smart
materials, including electroactive polymers (EAPs), which could
find applications in biotechnology and other areas of Federal
strategic interest.